Fluid-Sediment Interaction and Resulting Development of Pavement and Armor Layers in Gravel-Bed Streams: Research Initiation Award

An experimental and analytical research program will be carried out on river stability. The research is aimed at improved understanding and prediction of changes in the river course as a result of fluid-sediment interaction. The deformation of armored and gravel bed material will be modeled under a range of flow conditions and particle shapes.